9th InternationalWorkshop on Numerical Modeling of Mantle Convection and Lithospheric Dynamics

This brief proposal requests modest funds to help support the participation of
US-based graduate students and postdoctoral researchers in the 9th International
Workshop on Numerical Modeling of Mantle Convection and Lithospheric Dynamics
(henceforth IWNMC2005), to be held September 8-14, 2005, in Erice,
Sicily at the Ettore Majorana Center for Scientific Culture. The workshop is to
take place as the 25th Course of the International School of Geophysics.
The IWNMC2005 is the most recent in an established and highly successful
series of international meetings on mantle convection and lithospheric dynamics.
Previous meetings in the series were held in 1989 (La Londe les Maures, France),
1991 (Weilburg/Lahn, Germany), 1993 (Oleron, France), 1995 (Vlieland, Netherlands),
and 1997 (Naurod, Germany), 2001 (Aussois, France), and, lastly, 2003
(Hruba Skala, Czech Republic). The organizing committee for IWNMC2001 includes
David Bercovici (Yale University), Thorsten Becker (University of Southern
California), Cinzia Farnetani (IPG Paris), Carlo Giunchi (INGV Roma), and
Giorgio Spada (University of Urbino). The program for the workshop has been
completed, and information for participants can be found through the website at
http://www.ingv.it/erice2005.

Intellectual merit: Mantle and lithospheric dynamics is perhaps one of the most
fundamental and global of the geophysical sciences since it studies the basic engine
that controls the geological behavior of the Earth and terrestrial planets, not
only in terms of their thermal and chemical evolution, but also with regard to ongoing
tectonics and volcanism. The International Mantle ConvectionWorkshop is
the longest running series of conferences on this science in existence and has for
the past two decades provided an unprecedented means for scientists and students
from around the world to gather in unique and intimate surroundings, to discuss
the state of the art of our science, and to argue about the problems that remain to
be solved. Moreover, the workshop provides students and young researchers with
international exposure as well as technical training through lectures and tutorials
from some of the world's experts. The benefit to US students and junior scientists
will also be long-lasting as they meet new colleagues from around the world, and
form new collaborations that will inspire the next important discoveries.

Broader impact: The essential impact of this workshop and the requested funding
is the benefit it brings to junior scientists and students by furthering their intellectual
and professional growth, and by expanding their interaction with schools
of thought from other countries. Moreover, the contact that we make with our
over-seas colleagues facilitates our ability to recruit future excellent students and
postdoctoral scholars from around the world.